PPD/DP: USING SPACE SCIENCE TO ENHANCE SCIENCE, MATHEMATICS, TECHNOLOGY SKILLS AND SELF-ESTEEM IN SPECIAL NEEDS STUDENTS

Space is Special has been collaborating for several years with NASA and Space Camp to provide some students with disabilities exposure to hands-on science experiences along side students who do not have disabilities. This project will expand the project to reach many more students, their parents, and teachers. The following are goals to expand past efforts beyond West Michigan to encourage more communities and school districts to improve the mathematics, science, engineering, and technology education of students with disabilities. Space is Special (SIS) will: (1) Use science, mathematics, engineering, and technology education to enhance the self esteem of special education students. (2) Create opportunities for these students to work at a high level of proficiency in science and mathematics. (3) Provide more venues for mainstreaming these students by demonstrating their ability to be mainstreamed at Space Camp. (4) Give parents the experience of success for their children and provide an avenue for building on abilities rather than disabilities. (5) Help change the attitudes of students with disabilities to reach for higher goals, to enroll in more advanced courses, and to insist that they be given the right to take normal course loads in mathematics, science, and technology. (6) Give students with disabilities the opportunity to live, learn, and work in a team setting. (7) Encourage special education students to go on to higher education and pursue careers in technical fields. (8) Create a full set of educational materials--including slides, video tapes, and written lesson plans and experiments--so that teachers of special education students can increase their effectiveness at giving these students opportunities to demonstrate their skills in these fields. To achieve these goals, SIS proposes a three-year pilot project to demonstrate the effectiveness of specific activities and materials on a state-wide basis in Michigan. If successful, the pro ject can become the foundation for similar efforts elsewhere. The project will develop a curriculum and establish a Web page for the project that will include inputs from current and past SIS participants that can be used as an educational resource by special education classes anywhere. The project will focus on involving special education teachers directly in the project. Teachers will be selected who will observe project teaching methods and will attend Space Camp with a group of students from their districts. The concept of "master teacher" will be implemented with the first group of teachers. These teachers then later can be used to train more special education teachers in the SIS concepts and demonstrate student success in science, mathematics, engineering and technology. A Space Camp summer teachers institute will encompass a week-long training session at camp with special attention to taking lessons from the experience back to the classroom.